The Spatial Dimension of Adsorption and Reaction of Metal Surfaces

This research project, supported by the Analytical and Surface Chemistry Program, investigates the spatial dimension of surface reactions. Using scanning tunneling microscopy and UHV spectroscopic techniques, Professor Reutt-Robey and her coworkers at the University of Maryland-College Park are exploring self-diffusion events on metallic surfaces and the interaction of these events with adsorption and reaction processes on these surfaces. Hydrogen adsorption on vicinal Al(111) surfaces is used to probe stepped surface site distributions and adsorption driven step motion and facetting. Carbon-carbon coupling reactions of adsorbed iodobenzene and propyliodide are monitored on the Ag(001) surface in order to address the questions of reactant ordering and spatial dependences of reaction probabilities. In studies of the spatial dependence of surface reactions, Professor Reutt-Robey is addressing the molecular mechanisms of heterogeneous catalysis. Using microscopic and spectroscopic approaches to these questions, she is able to elucidate the detailed mechanisms of catalyst step motion induced by reactant adsorption, and the effect of reactant orientation on the likelihood of a particular reaction occurring. The information gained from these studies is useful in developing a detailed understanding of the technologically important field of heterogeneous catalysis.